Third Workshop on Issues in teaching Computational Linguitsics

Workshop: Issues in Teaching Computational Linguistics,at the ACL:HLT 2008 Conference

The Association for Computational Linguistics
(ACL) is the primary international organization in the field of
natural language processing and language engineering.
The ACL's annual conference is the major international meeting in the field.

NSF support subsidizes travel,conference, and housing expenses of researchers selected
to participate in The Third Workshop on Issues in Teaching
Computational Linguistics, held during the joint ACL on 19th to 20th June
2008 in Columbus, Ohio.

Intellectual merit

The primary challenge addressed in this workshop is that of working
out what is necessary in order for computational linguists to
communicate and collaborate effectively across disciplinary
boundaries, and then to articulate principles for the design of
curricular materials and pedagogical strategies for fostering this
collaboration in the classroom. Participants will discuss these
issues at the workshop, and carry the results back to their home
instititutions for practical validation.

Broader impacts

The workshop contributes to the maintenance and development of a
community of scholarship about teaching in Computational Linguistics
and Natural Language Processing. The panel sessions and paper
presentations are designed, in part, to disseminate experiences about
the strategy and tactics of teaching to the audience that will be most
able to use them, in part, to elicit suggestions from industrial,
government and academic employers about the unmet needs they perceive
for training and education.